A Low Energy Standard Model Test via Polarized Electron Scattering at Jefferson Lab

Support from this grant will be used to continue a program of nuclear physics
research focused on the fundamental properties of the nucleon. The program is
based at the Thomas Jefferson National Accelerator Facility (JLab) and is
focused on two objectives. The primary goal of this program will be to
complete the construction of a tracking system for the Qweak experiment with
the involvment of two students. The second objective will be to prepare a
physics program as well as design and construct instrumentation for the JLab
12 GeV upgrade. The Qweak experiment is a parity-violating electron scattering
experiment designed to measure the weak charge of the proton. A measurement
of the proton's weak charge can be used to extract a fundamental quantity
known as the weak mixing angle. The current description of particle interactions,
commonly referred to as the ""Standard Model"", predicts how the weak mixing
angle changes with the amount of momentum that is transferred during an
interaction. As a result, a measurement of the proton's weak charge will evaluate
the veracity of the Standard Model as well as be sensitive to competing theoretical
descriptions involving new physics should the Standard Model fall short.

While this NSF-supported program will primarily construct a tracking system critical to
the Qweak experiment, it will also continue to play a major role developing a physics
program and instrumentation for the JLab 12 GeV upgrade. The principal investigator
is a co-spokesperson for a physics program to measure polarization observables of the
nucleon at an energy upgraded JLab. The measurements made will constrain the stark
theoretical predictions describing these distributions at kinematic regions where
the probed quark carries most of the nucleons momentum. The PI is also supervising
the design of a tracking system for the JLab energy upgrade. The development of particle
tracking systems for Qweak and the JLab 12 GeV upgrade is the means through which this program
educates both graduate and undergraduate students thereby enhancing the intellectual
infrastructure of our technology driven society.